Regulation of motor mechanisms in active mechanosensation

Motor proteins, crucial for many cellular functions, are emerging as drivers of active mechanosensation. Unlike passive senses, mechanoreceptors often use active, energy-driven mechanisms to boost faint signals or adjust the sensitivity to different frequencies. In flies and mosquitoes, the antenna serves as the ear and displays active oscillatory movements that are physiologically tuned through energy-dependent activity of the sensory organ. The resulting antennal movement shifts the antenna’s resonant frequency to match the courtship song frequency and results in ten-fold more sensitivity to the songs. This study is designed to understand the motors that generate these active movements at the molecular level and how the movement is coordinated with the electrical aspects of converting sound to nerve signals, by using sophisticated genetic approaches in the fruit fly. The results will provide novel insights into mechanosensation and help to solve current controversies in the molecular mechanisms regulating mechanosensation. This understanding may also direct the design of novel approaches to mosquito control in service of global public health. The proposed studies will provide instructional opportunities for undergraduate and graduate students in the research lab, in an undergraduate teaching lab, and through collaborations with local high schools and community artistic science projects. Through strategic partnerships, such as collaboration with the Iowa Science Academy, students will gain hands-on experience in cutting-edge research to help prepare the future scientific workforce. This project advances NSF’s priorities in Biotechnology.

The study will test the model that active antennal oscillations are generated by ATP-dependent activity of axonemal dynein motors in the ciliated dendrites of the sensory neurons in the antenna. Furthermore, the study will investigate the regulation of axonemal dynein motors in generating appropriate active antennal movements to tune and amplify auditory sensitivity. Axonemal dynein motor activity is expected to peak in the absence of stimulus, and to be damped by calcium influx during sensory transduction. Taking advantage of the genetic tools of Drosophila, the proposed approach is to first assess the effects of eliminating dynein arms in the ciliated dendrites from each of two functional subtypes of antennal neurons. These effects will be systematically evaluated by measuring the active antennal movements and sensory transduction in mutant strains. Second, specific Drosophila dynein genes will be tested for their unique contributions to active mechanosensation. Finally, calcium-dependent regulation of dynein activity will be assessed. These studies will leverage the sophisticated genetic tools available in Drosophila, coupled with advanced methods in electrophysiology and laser vibrometry. The resulting understanding will impact how scientists think about active mechanosensation not only in Drosophila, but also in other organisms such as mosquitoes, which appear to use the same mechanisms in a sexually dimorphic manner for their courtship, holding the potential for innovative pest control strategies. Overall, these studies will also serve as a comparative model in understanding active mechanosensation in vertebrate sensory systems which accomplish the same active properties using different cellular machinery.